WOCE IPO Appointment

This proposal is to provide support for a NOAA scientist to staff the World Ocean Circulation Experiment (WOCE) international office in England and for the continued development of coupled ocean-atmosphere models at the NOAA Pacific Marine Environmental Laboratory in Seattle.